Automorphic Forms, Moduli Spaces, and Quantization

ABSTRACT DMS - 0204154. PI: Tatyana Foth

I will study holomorphic automorphic forms on bounded symmetric domains and
related problems of quantization. Let X be a quotient of a bounded symmetric
domain by a lattice. The space of holomorphic automorphic forms can be
identified with the space of holomorphic sections of a tensor power of the
canonical line bundle on X. In the context of geometric quantization this
is the quantizing line bundle, X is the classical phase space, and
automorphic forms are quantum states, i.e. wave functions of a particle.
I shall investigate properties of Poincare series and relative Poincare series
associated to real submanifolds of X. From the point of view of quantization
they are components of the delta-function. Explicit construction of relative
Poincare series associated to closed geodesics in finite volume smooth ball
quotients and the spanning result can be used to obtain rational structures
on the spaces of cusp forms for arithmetic subgroups of SU(n,1). Another
problem I shall address is the computation of curvature of a natural connection
in the vector bundle over a space of compatible complex structures on
a symplectic manifold X, whose fiber over J is the space of J-holomorphic
sections of k-th tensor power of the quantizing line bundle. To begin with,
I will compute the symbol of the curvature in the semiclassical limit for
certain types of X. The first interesting example would be the case when X is
a hyperbolic Riemann surface, where an explicit basis in the space of
automorphic forms can be used as a moving frame.

The main object of my research is automorphic forms on bounded symmetric
domains. They are functions with very special properties on spaces which have
interesting geometry and many symmetries. In addition to being an important
and intensively studied subject by itself it has a very close relation to
geometric quantization which is a part of mathematics whose development was
strongly motivated by physics and by general desire to understand better the
nature of the world and to describe it in terms of suitable mathematical
formalism. The main goal of geometric quantization is to find a rigorous
mathematical way to pass from classical mechanics to quantum mechanics in
a space which may have a very complicated geometry. More precisely, the
question is how one can establish a suitable correspondence between
classical observables and quantum observables. The space of wave functions
is, clearly, a fundamental and very important object. It turns out that for
certain classical phase spaces automorphic forms are wave functions of
a particle. Properties of automorphic forms are strongly related to the
complex structure. One of the questions I shall address is to what extent
the procedure of geometric quantization depends on the complex structure.
That leads to discussion of connections in vector bundles on certain moduli
spaces which are of great interest and significance for both mathematicians
and physisists.